WORKSHOP: Usable Verification.

This workshop proposal requests funds to partially support a meeting to bring together researchers who have developed formal methods and applied them to industrial use, in order to discuss the current state of applicability of formal methods. The meeting takes place at the cusp of two related conference VMCAI and POPL, the first being a conference about verification and the second being a conference about programming languages. It is highly desirable to get representatives of the group together for this meeting. If such a consensus is reached, an Organizing Committee will be formed and plan a follow-up workshop that will allow for in-depth examination of the issues raised.